Variational Conditions: Analysis, Algorithms and Applications

Lu
DMS-0807893

The variational condition provides a unified mathematical
model for a large number of equilibrium problems. It is also
closely related to other mathematical problems such as
optimization problems and complementarity problems. The
investigator and her colleagues study the mathematical structure
of certain finite-dimensional variational conditions, develop
solution algorithms, and apply these to handle model input
uncertainty in practice. Specifically, they investigate the
influence of the major constraint qualifications on the structure
of the variational condition, to identify conditions that
indicate nice solution behavior and are more general than the
current nondegeneracy condition. Based on these conditions, they
analyze the sensitivity and stability of a variational condition
with respect to perturbations in both the function and the set in
its formulation, provide criteria to identify classes of
practical problems that satisfy these conditions, and design and
justify algorithms for solving these problems. They also apply
knowledge gained in this work to other areas dealing with model
input uncertainty, such as robust programming and stochastic
optimization.

The investigator studies a mathematical model called
variational condition. This is a general model that
characterizes an equilibrium status. For example, it can model
an economic equilibrium that predicts commodity prices, sector
activities, and consumer consumptions, or a force equilibrium
that describes the geometry and dynamics of a mechanical
structure, or a traffic flow equilibrium in a transportation or
computer network. Thus, this model provides a unified framework
for a very large number of equilibrium problems from areas
including economic policy studies, structural engineering,
transportation, computer networks, materials science, and other
areas. It is also closely related to some other important
mathematical problems, such as optimization problems; it can be
regarded as a generalization of optimization problems. In this
project, the investigator and her colleagues seek to develop
better insight into the mathematical structure of this problem,
and to exploit this insight to produce better computational
algorithms and the means for justifying them. They investigate
what the solutions of this problem look like, how they change
corresponding to changes in the model input, how to find a
solution quickly and robustly, and how to identify practical
problems that are easy to solve and have robust behavior.
Success in the work helps to better understand, analyze and solve
the broad class of equilibrium problems.